Nitrogen Assimilation: Molecular and Genetic Aspects Conference: to be held May 4-8, 1997 on the Tampa Campus of the University of South Florida

Abstract Solomonson 9603476 This is an award to support attendance of young investigators at a meeting to be held May 4-9, 1997 on the campus of the University of South Florida in Tampa. The topic of the meeting is "Nitrogen Assimilation: Molecular and Genetic Aspects". This meeting will bring together microbiologists and plant biologists to discuss a variety of topics relating to nitrogen fixation and nitrate assimilation. The program includes topics from chemical to ecological. Participants will have the opportunity to meet informally to discuss their work as well as attend formal lectures.